High Energy Physics

This award covers experimental Elementary Particle Physics Research on the constituent structure of matter by a group at Johns Hopkins University in collaboration with other NSF and DOE supported scientists. The group will continue studying electron-positron annihilations as a member of the L3 collaboration, and neutrino oscillations in the NOMAD experiment, both at CERN, Switzerland. They will also continue research and development of wedge silicon detectors at Johns Hopkins University.